Development of Models for Coupled Geochemical/Geophysical Dynamics at Subduction Zones

Magmatism and mantle convection at subduction zones and island arcs are some of the principal processes affecting the geochemical and physical evolution of our planet. The purpose of the proposed work is to develop a set of quantitative computer models that can relate these processes at depth to observations available at the surface, particularly the composition and volume of volatiles and magmas that erupt at island arcs. This requires developing codes that can consistently solve for reactive magma-transport in a deforming convecting mantle. Based on an extensive set of models designed for melting at mid-ocean ridges these new codes will be extended to include the impact of volatiles on melting at island arcs. Both sets of models will provide a consistent framework for investigating the coupled geophysical/geochemical dynamics of the Earth's mantle.